Lithium Isotope Compositions of Volcanic Arc Lavas: A Study of Processes and Fluxes in Subduction Zones

Funds that are provided will extend the use of the Lithium proxy to the arc systems. The objectives are to determine the isotopic variaion of Lithium in lavas as a funciton of the nature of subarc mantle, the extent of modification by subduction components, the mass transfer processes and the physical conditions of the subduction environment. In addition, sediment flux carried by the down-going plate will also be estimated to assess lithium recycling at the convergent margins. Samples from the Cascadia, Aleutian and Tonga-Kermadec Arcs will be analyzed.